Joint Propagation Direction in the Colorado Plateau and Implications for Origin of Jointing

Joints are ubiquitous features in rocks. This study will examine directions of vertical propagation of joints in the Colorado Plateau to test various hypotheses of the origin of joints. Results will be of theoretical utility as well as of help in understanding causes of fluid flow in joints.